Special Projects: The Recruitment and Retention of Faculty and Graduate Students in Computer Science and Engineering

EIA-0107409
Aspray, William
Computing Research Association

Title: Special Projects: The Recruitment and Retention of Faculty and Graduates Students in Computer Science and Engineering.

This award to the Computing Research Association (CRA) provides funds to support a significant study of the current problems of recruitment and retention of graduate students and faculty in computing research fields. The project is collecting and analyzing data and information on the subject, will develop suggested actions for interested agencies and other organizations to take, and will establish means to collect the data and information on an ongoing basis so that it will be on hand as problems arise in the future. The study group consists of twelve to fifteen qualified individuals selected from various areas of the computing research community.